An Investigation of the Galvanic Corrosion Induced by the Repair of Deteriorated Steel-Reinforced Concrete Structures

The steel reinforcing bars in concrete structures corrode as a result of salt action, and little is known concerning the rate of corrosion and affect of repair techniques. This project will investigate the effect of various resin-based materials on the steel bar in order to determine more effective repair methods or new design materials.